The Fifth U.S.-Korea Forum on Nanotechnology: Nano-Biotechnology

OISE-0814083 (Jhon, M. S. Carnegie-Mellon University)
The Fifth U.S.-Korea Forum on Nanotechnology: Nanobiotechnology

This award supports a U.S. Korea workshop on nanobiotechnology. The workshop will focus on synthesis, characterization, and structural control of nano-biomaterials; relevant instrumentation technologies; and environmental, health and safety issues. The workshop will bring together approximately 35 U.S. and Korean researchers. One-third of the U.S. scientist and engineers will be early career. The key Korean collaborator is Dr. Jo-Won Lee, Director, The National Program for Tera-level Nanodevices, Seoul, Korea. Korean participants come from the Korea Advanced Institute of Science and Technology (KAIST), the Korea Institute of Science and Technology (KIST), the Korea Institute of Science and Technology Information (KISTI), the Korea Nano Technology Research Society (KNTRS), the Korea Research Institute of Standards and Science (KRISS), the Korea University (KU), the Pohang University of Science and Technology (POSTECH), the Seoul National University (SNU), and the Yonsei University. This workshop is jointly funded by the Office of International Science and Engineering (OISE) and the Directorate for Engineering (ENG).